CAREER: DESPOT: Enhanced Dynamic Process Management for Beowulf Clusters on the Grid

EIA-0092839
Daniel Andresen
Kansas State University

CAREER DESPOT: Enhanced Dynamic Process Management for Beowulf Clusters on the Grid

Current systems for managing workload on clusters of workstations, particularly those available for Linuxbased (Beowulf) cluster, are typically based on traditional process-based, coarse-grained parallel and distributed programming. In addition, most systems do not address the need for dynamic process migration based on differing phases of computation. As we have outlined in the proposal, the DESPOT project will first build a sophisticated thread-level resource-monitoring system for computational, and network resources. This information will be used in an intelligent scheduling system to perform adaptive process/thread migration within the cluster.